Establishment of an International Working Group on Fetal Alcohol Syndrome

The International Union for Circumpolar Health has sought support to establish an international working group on fetal alcohol syndrome in conjunction with the IX International Congress on Circumpolar Health scheduled for June 20-25, 1993 in Reykjavik, Iceland. FAS is an entirely preventable problem which has reached epidemic proportions in the Arctic. The FAS problem requires social, educational and health solutions. International collaboration allows for the study of the epidemiology of FAS and the planning and development of evaluation and prevention strategies in the Arctic.